APS Division of Particles and Fields; Vancouver, anada; August 18-22, 1991

This award will partially support the Particles and Fields Conference to be held in Vancouver, Canada; August 18-22, 1991. This is a meeting of the Division of Particles and Fields of the American Physical Society, which will be held jointly with the Division of Particle Physics of the Canadian Association of Physicists on the campus of the University of British Columbia. Planary and parallel sessions will cover most of the currently active high energy physics topics and will provide a broad overview of what is being done now at the various accelerator centers of the World. The award is for the partial support of US students and post-doctorals, who would otherwise have difficulty obtaining support.